Mathematical Sciences: Curve Estimation in Motion Analysis

This project is concerned with the expansion of a course of work in which nonparameteric smoothing and the bootstrap are applied to several real work problems in biomechanics and robotics. The motivation and many of the future applications come from gait analysis, ie, the study of free-speed human walking on a level surface. We utilize a model whose main aspect is a scalar or vectorial function that describes motion of a "subject". After fitting data from a learning sample, and applying the bootstrap, prediction regions for the curves of a subsequent "test subject" are computed. The prediction regions are to be studied numerically and theoretically. Other aspects of the project involve approaches through kernel methods, using data to pick bases and models, and conditional versions of the prediction regions. We also will study multivariate problems of the prescribed type as they apply to robots and numerically controlled milling machines.